RUI: Collaborative Research: Invasion of An Exotic Cladoceran into North American Reservoirs

9317869 Havel This project investigates the extent and impact of the invasion by the alien microcrustacean Daphnia lumholtzi on the freshwater biota of the central and southeastern United States. This species may be more resistant to predation than native species and may therefore replace native species and disrupt natural food chains. This disruption could have important consequences on the productivity of freshwater bodies, including fish populations. The project will examine the invasion by this species by surveying several hundred reservoirs in the central U.S. to determine its distribution and its effects on the biota. %%% This research is important because it examines the pattern and consequences of the accidental introduction of an alien species into bodies of fresh water. The results will be of use to fishery managers, conservation biologists, and those charged with regulating the import of alien species into the United States. *** G B G F G G ^ Times New Roman Symbol & Arial 1 Courier 5 Pitch 1 Courier 10 Pitch 5 Courier New " h % % 1 Deborah Johnson Deborah Johnson